SBIR Phase I: Leading a Hardware Revolution through Open Source

The broader impact/commercial potential of this Small Business Research (SBIR) Phase I project is to explore applications of open source development in computer hardware. This model will enable new ideas and semiconductor-based technologies to be envisioned, developed, and deployed. This project will enable collaborative networking to build the developer ecosystem around sophisticated chip implementations.

This Small Business Innovation Research (SBIR) Phase I will advance the development of state-of-art hardware tools for novel integrated circuit chip implementations. The system will scale from a 28 nm process to sub-7 nm semiconductor chip manufacturing nodes. Project objectives include: 1) implementation of open source models in hardware design; 2) initial design of circuit design blocks.